Algebraic and Geometric Constructions of Shannon Limit Approaching Codes and Turbo Decoding of Reed-Solomon Codes

As the demand for error-free data transmission and data storage increases,
error control becomes increasingly important in data communication and data
storage systems. It has become an integral part in almost every data
communication or storage system design. Today very sophisticated error
control schemes are being used in a broad range of communication and data
storage systems to achieve reliable data transmission and storage, such as
wireless communication, satellite communication, optical communication,
hard disc drives, compact disks and many others. The objective of this
research is to devise methods for constructing good error control codes and
to develop efficient error control schemes which have great potential to
achieve error-free communication and data storage for the future generation
of data communication and storage systems.

Recently, there have been dramatic developments in error control codes and
decoding algorithms. Two families of powerful codes, known as turbo and
low density parity check (lDPC) codes, have been discovered and rediscovered.
These two families of codes with iterative decoding have been shown to
perform close to Shannon's theoretical limits with reasonable implementation
complexity. As a result of their amazing error performance and practical
implementation, it is anticipated that these two classes of codes will have
an enormous impact on virtually all applications of error control coding over
the next 10 years or so. This research involves in two important aspects
of these two classes of Shannon limit approaching codes: construction of LDPC
codes and turbo decoding of Reed-Solomon (RS) codes. The construction of
LDPC codes is based on combinatoric appraches, such as finite geometries over
finite fields, statistical experimental designs, permutation groups and
graphs. In these approaches, points, lines, hyperplanes in finite geometries,
balanced incomplete block designs, affine permutation groups, and paths
and independent sets of graphs are used for constructing LDPC codes whose
Tanner graphs do not contain short cycles. All the construction methods
are systematic and codes constructed have good structural properties which
simplify encoding and decoding implementations. Turbo decoding of a RS code
is based on binary decomposition of the code into a set of simple binary
component codes and formulating the code as a self concatenated code with the
RS code itself as the outer code and the component codes as inner codes in a
turbo coding arrangement. The decoding is carried out in two stages, turbo
inner decoding and outer algebraic soft-decision decoding.